A New Insect and Plant Konservat-Lagerstatten from a Tertiary Marr Lake Deposit in the Upper Missouri River Basin, SW Montana

9903098
Ivie

This project will begin the excavation of a newly discovered deposit of extraordinarily preserved insect and plant fossils endangered by semi-annual flooding by the waters of a Reservoir on the Upper Missouri River. The age of these fossils from the Late Oligocene-Early Miocene fills a gap in our knowledge of the flora and fauna of this region. This unique quality and age, combined with the high taxonomic diversity represented, will allow insights into the evolution of the flora and fauna of the Northern Rocky Mountain Region during a critical period. During this award, we will 1) excavate the site and preserve the fossils discovered; 2) determine the age, context and extent of the site; 3) identify and describe the insect diversity represented; 4) investigate the conditions under which such outstanding fossils of delicate specimens were deposited; and 5) place the site in a regional context.